Gordon Research Conference on Analytical Chemistry

This award from the Analytical and Surface Chemistry Program of the Division of Chemistry provides partial support to enable the participation of eight to ten assistant professors and a similar number of ACS Division of Analytical Chemistry graduate student award winners in the 1997 Gordon Research Conference on Analytical Chemistry. This conference is entitled `Measurement Problems and Tools Arising from Combinatorial Synthesis` and it focuses on the current and emerging problems of doing analytical chemistry on enormous numbers of small samples produced by this new approach to chemistry. Much of the effort in this area is presently resident in small venture capital companies and this conference would expose bright, young analytical chemists from academe to the opportunities in combinatorial chemistry. This award enables participation of young analytical faculty and graduate students in the 1997 Gordon Research Conference on Analytical Chemistry. The focus is on analytical problems arising in the area of combinatorial synthesis and the consequent explosive growth in the need for fast, sensitive, and selective analysis of many, small samples.